Computer Interfaced Experiments in Physics

This award is made as part of the Instrumentation and Laboratory Improvement program. This program funds innovative new projects for undergraduate physics laboratories. The Principal Investigator of this project is Dr. Rowan of University of North Carolina at Chapel Hill.